MRI: Acquisition of an Inductively Coupled Plasma Emission Spectrometer and a Gas Chromatograph (GC-FID/ECD/SCD) for the Virginia Military Institute

Bott
0521068
The main objective of this proposal is to acquire inductively coupled plasma emission spectrometer and a gas chromatograph (GC-FID/ECD/SCD) equipment for both teaching and research purposes in the Environmental and Water Engineering program at the Virginia Military Institute (VMI). This proposal addresses the need of the instruments for teaching purposes for various laboratory-based courses. Collaboration between various departments will provide interdisciplinary research and education opportunities for undergraduate students. Collaboration with regional industries/municipalities will also provide students to study the wastewater treatment and other environmental contamination issues.